Synthetic Methods and Total Synthesis in Organic Chemistry

The Synthetic Organic Program will support the research of Dr. Gilbert Stork of the Department of Chemistry at Columbia University. Dr. Stork will continue his highly innovative studies on the development of new synthetic strategies. The research is centered around the development of highly regio- and stereoselective methods for the construction of organic structures from the relatively simple to the relatively complex. Dr. Stork will focus on several areas including the control of regio- and stereochemistry via radical cyclization processes and their application to total synthesis; the control of regio- and stereochemistry by enforcing intramolecularity on normal intermolecular reactions via a temporary, removable silicon (or metal) connector linking the two normally separated reactive fragments; and on the use of guanidine systems embedded in suitable frameworks for probing molecular recognition.